Renovation of Chemistry Research and Research Training acilities

Colby College requests funds for the renovation of advanced chemistry research and research training facilities in Keyes Chemistry Building. The renovated facilities will strengthen advanced laboratory instruction in Chemistry; will support emerging interdisciplinary programs in cell and molecular biology/ biochemistry and environmental science; and will facilitate collaborative student-faculty research - a hallmark of Colby's new undergraduate science curriculum. Specifically, the proposed renovation will upgrade facilities for three general areas of chemistry on two floors of Keyes - biochemistry, analytical/physical chemistry, and chemical synthesis. In addition, the project includes an instrumentation laboratory area which encourages shared use of instrumentation and collaboration. The chemistry faculty, comprised of six members, will conduct research or research training in the proposed renovated facilities. The successful completion of the plan to modernize Keyes will help Colby attract more students to major in the natural and physical sciences, will nurture the skills and enthusiasm that will lead them to go on to earn higher degrees, and will motivate them, through excellence in teaching and research, to make contributions to the strengthening of America's scientific base. Further, the availability of improved chemistry research facilities will make Colby more competitive as it seeks to recruit outstanding young science faculty.